The 1990 Northeast Regional Conference on Developmental Biology: Marine Biological Laboratory; April 20-22, 1990, Woods Hole, Massachusetts

This proposal requests funds to help provide support for student participants at the 1990 Northeast Regional Conference on Developmental Biology. This Conference will be held at the Marine Biological Laboratory, Woods Hole, Massachusetts, April 20-22, 1990. The Conference will include four platform sessions, two poster sessions, a keynote address and ample opportunity for informal discussion of research. There are two general goals of this Regional Meeting in bringing together younger investigators in the field of developmental biology. The first is to expose them to important current research in laboratories throughout the Northeast. The second is to give them a chance to present their own work in both formal presentation as well as informal discussions. The specific goal of this 1990 meeting is to bring together those investigators working on plant development and those working on animal development in order to develop a common language and appreciation of each other's work.